A UHV Surface Analysis System for Nonlinear Optical Studies of Surface Structure, Spectroscopy and Dynamics

The knowledge of nonlinear optical phenomena at a surface and their use as probes for surface physical and chemical properties will have fundamental impact on surface sciences, materials processing, and development of optical and electronic devices. The use of state-of-the-art surface preparation coupled with sophisticated laser instrumentation and the appropriate surface analysis system enhances the ability of investigators to obtain detailed information on the surface before, during, and after interaction with the laser light. This award, co-supported by the Chemistry Shared Instrumentation Program and the Instrumentation for Materials Research Program, will aid in the acquisition of the major portion of an Ultra High Vacuum (UHV) Surface Analysis System. The areas that will be enhanced by the acquisition are: 1) The interaction of intense light with adsorbates and surfaces. 2) The electronic structure of nearly free electron (NFE) metals, particularly the charge density near surfaces. 3) Development of fast time-resolution for the study of desorption dynamics, energy transfer, and reaction dynamics on surfaces.